The Role of POC, Small Particles and Aggregates in Biogeochemical Cycles in Southern Ocean Fronts

9530837 Gardner The principal investigator will employ optical instruments from shipboard to determine the types and size distribution of particles and particle aggregates in the oceanic water column during the U.S. JGOFS Southern Process Study. By making these measurement, the investigator and his colleagues expect to be able to calculate rates of particle aggregation and disaggregation and to clarify the role played by aggregation in determining the vertical flux of particulate materials, especially carbon, during and between periods of algal blooms.